International Conference on Computational Nanoscience (ICCN)

ABSTRACT

Proposal Number CTS-0211553
Principal Investigator Niels Jensen
Affiliation U. of California, Davis
Title International Conference on Computational Nanoscience (ICCN)

Computational analysis of the nanoscale structures, systems, and processes play a critical role to provide insight into different approaches in nano science and engineering. However, this field is in the early stages of development. The Computational Nanoscience Conference will provide a forum for broad discussion of methods and ideas that will otherwise be limited to a relatively small group of investigators. It will furthermore encourage the participation of students and faculty early in their career to engage in this important field. The international participation will allow the most advanced methods and ideas to be discussed and evaluated.